Deformable Volumetric Modeling

Voxel-based volumetric objects normally have much more complex physical properties and spatial structures than surface-based geometric models. Thus, traditional physically-based deformation modeling techniques are often ineffective and costly in the volumetric domain. This project will focus on developing efficient and accurate modeling techniques, computational methods and visualization algorithms for deformable volumetric objects. A new landmark-based volume deformation model and related rendering algorithms will be developed. In this model, a volume deformation is represented by a relatively small set of landmark points defined in a volume space. Three-dimensional scattered data interpolation methods will be applied to generate smooth deformation functions over the volume space. Landmark points and their movements can be used for both the interactive deformation manipulations and the deformation pattern representations of specific types of deformable objects. Instead of directly modeling the object's physical or biological properties, this approach employs an inverse method to derive the deformation pattern of a given class of objects, using a parameterized spring model, directly from existing or experimental data. Fast deformable volume rendering algorithms will also be developed to support the visualization of the volume deformation process. To avoid unnecessary deformation computation and multiple volume resampling, the deformation computation will be integrated into the rendering process without explicit volume reconstruction. For region-specific deformations of different sub-structures in a complex and hierarchical volumetric environment, deformation operations can also be applied to a Volumetric-CSG model to support deformable volumetric object manipulation. Several applications of this research will be pursued, including craniofacial growth, volume morphing, medical object modeling and interactive volumetric animation.